Knot concordance and Heegaard Floer homology

This proposal aims to study knot and link concordance using tools from
Heegaard Floer homology, a powerful set of techniques in low dimensional
topology introduced in 2000 by Ozsváth and Szabó. In its short lifespan,
Heegaard Floer homology has already been used to solve numerous problems in
topology, many of which had resisted mathematicians' efforts for decades.
Specifically, it has provided new insight into knot theoretic questions
related to the Seifert genus, fibered knots, Legendrian and transversal
knots, the 4-ball genus of knots and the smooth concordance order. Knot
concordance, introduced by Fox and Milnor in the 1960s, spans the whole
spectrum (of dimensions) of low dimensional topology: concordance studies
knots, 1-dimensional objects in 3-dimensional spaces, up to an equivalence
relation (concordance) which is defined using surfaces and 4-dimensional
manifolds. Despite many efforts, very little is known about the structure of
the concordance group. This project will apply tools from Heegaard Floer
theory to a number of aspects of knot concordance. We will study smooth
concordance of topologically slice knots, concordance of two-component
links, torsion in the knot concordance group. We will also generalize the
current Heegaard Floer techniques by utilizing higher fold branched covers.

Topology is the study of abstract spaces, called manifolds, of various
dimensions. Low dimensional topology focuses on spaces of dimensions up to
four. Knot theory is the study of knottings of loops in 3-dimensional
space. With a long history reaching back to the 19th century, it is
fundamental to many areas of mathematics and physics, and also has
applications in biology and chemistry. Knot concordance encompasses the
study of a series of questions about knots and surfaces bounded by knots.
Heegaard Floer techniques grew out of a synergistic interaction between
mathematics and physics, specifically gauge theories from quantum physics.
Research in the last 30 years has shown that low dimensional topology is in
many ways more mysterious than topology in higher dimensions. The study of
knot concordance reflects much of this complexity inherent in low
dimensions, and advances in our understanding of concordance are likely to
have far-reaching impact in topology.